Collaborative Research: An Interactive Undergraduate Data Mining Course with Industrial-Strength Projects

Computer Science (31) This collaborative project involves the integration of the undergraduate data mining course with real-world applications closely directed by domain experts. The objectives of this project are to promote data mining skills essential to problem solving, to apply data mining techniques to real-world applications, and to establish vehicles and approaches to increase student retention in the course. The objectives are accomplished in several ways: (1) designing a pre-assessment instrument measuring student knowledge of data mining and on-line tutorials; (2) adapting course materials that will enhance problem solving skills through reflection, critique, and exercises; (3) developing interactive and animated courseware to help undergraduate students understand the harder concepts and algorithms; and (4) using a continuous evaluation process that addresses not only student achievement but enrollment retention. Broader impacts include the establishment and widespread dissemination of a curriculum model for effective adoption of data mining courseware by computing programs nationwide.